Acquisition of a New Automated Carbonate Processing Device

Summary: This proposal is to provide partial support to acquire a new Delta-plus mass spectometer and a Kiel III sampling device to replace a 17 year-old Finnigan-MAT 251 equiped with a 10 year-old common acid bath system that is that has recently been subjected to numerous breakdowns.